Elementary, Secondary, and Informal Education: Huntington Conservatory for Botanical Science

The Huntington Library will develop the Rose Hills Foundation Conservatory for Botanical Science to engage visitors of all ages in the study of plants. Conceived as a synthesis of a traditional conservatory and an interactive science center, the Conservatory will be a 16,000-square-foot permanent exhibition featuring spectacular plants in a family-oriented setting. Using a living collection of plants from around the world, visitors will explore the diversity of plants. Interactive exhibits will encourage visitors to make observations and comparisons of plant structures.